ExCELS: Expansion of Computer Education in Learning the Sciences

This project will provide about 60% of the funding for a third and fourth year extension of a previously funded teacher development project entitled "Expansion of Computer Education in Learning the Sciences", (ExCELS). The remaining funds for the project will be provided by Indiana University of Pennsylvania and the school districts of the participating teachers. Leadership training in both content and pedagogy will be provided for two separate groups of 60 science and mathematics teachers/coordinators during the summers of 1988 and 1989. Following the summer workshop, participants will implement project developed activities in their own classrooms, and subsequently provide inservice programs for their peers which will enable the peers to implement computer use into the teaching of their academic disciplines. Science participants will be selected from the disciplines of biology, chemistry, physics, and earth science, while mathematics participants will represent teachers of the entire grade range, K-12. The acquisition of the necessary hardware and software, as well as support for the post summer inservice programs conducted by the participants will be provided by the school districts. An electronic mail network will provide mutual support for the participants as they implement the activities in their classrooms and provide inservice to their peers. This proposal is meritorious for funding because of the quality of work produced in the phases already funded, the well-thought out plan for extending the expertise of the participants to their peers through inservice, the emphasis on the use of technology in relevant science instruction and the interdisciplinary thrust of relating science and mathematics in school systems involved. The plan for production of a resource book of the activities involved will provide further dissemination and adoption of the project results.